Effective Action in Three Dimensional Topological Field Theory

Research in mathematical physics will focus on analyses of topological quantum field theories. While rather abstract, this research can teach us important lessons about the mathematical structures which may prove to describe the elementary particles and their interactions.